SBIR Phase I: Dynamic Torsional Knee Ankle Foot Orthosis (DTKAFO) for Lower Extremity Deformities

This Small Business Innovation Research (SBIR) Phase I research project will develop a Dynamic Torsional Knee Ankle Foot Orthosis (DTKAFO) for the treatment of Metatarsus Adductus/Varus (MTA), Internal Tibial Torsion (ITT) and Talipes Equinovarus (TEV). The DTKAFO offers an easy-to-use brace that combines the manipulation aspects of physical therapy, the positioning of serial casting and the compliance benefits of thermoplastic bracing. The design of the DTKAFO will be finalized via prototype development and with close input from orthopedic surgeons.

The commercial application of this project will be in the area of orthopedics for treatment of congenital foot deformities in children.